The Constellation Observing System for Meteorology, Ionosphere and Climate (COSMIC) Satellite Constellation

This is a transfer of funds to the U.S. Air Force Rocket Systems Launch Program for the launch of the COSMIC satellite constellation. COSMIC is a constellation of six satellites that will make use of recent developments in remote sensing, communications technology, and computing to solve some of the most important geo-scientific issues today. Each spacecraft will carry three science payloads for weather and space weather research and prediction, climate monitoring, and geodesy. These payloads are 1) GPS occultation receiver 2) Tiny Ionospheric Photometer (TIP) and 3) Tri Band Beacon Transmitters (TBB). The COSMIC system includes the low earth orbit satellites, ground data reception and spacecraft control stations, data analysis centers and the data communications networks.